Travel: Moduli Spaces, Quantization and Poisson Geometry

This award supports US-based participants of the conference "Moduli Spaces, Quantization and Poisson Geometry" at the SwissMAP Research Station at Les Diablerets, Switzerland, August 23-28, 2026. The study of moduli spaces parametrizing mathematical structures has a long and rich history, and remains a highly active area of investigation, with close ties to several areas of mathematics, including symplectic geometry, complex geometry, algebraic geometry, representation theory, and mathematical physics. The conference will provide a significant opportunity for researchers at various career stages to interact, fostering research collaborations between research groups located in the US and abroad, and engaging with recent developments in the field.

Moduli spaces frequently carry rich geometric structures, including symplectic or Poisson structures and their relatives. Quantization of these moduli spaces links several different areas of mathematics and theoretical physics. A cross-cutting theme of the meeting is the interplay of higher geometric structures, moduli spaces of geometric structures on surfaces, and their quantizations. Topics to be discussed at the conference include: character varieties and moduli spaces of flat connections on surfaces; Teichmuller theory and moduli spaces of geometric structures on surfaces; Symplectic, Poisson and Dirac geometry; Lie groupoids and Lie algebroids; Differentiable stacks, gerbes, and higher structures; Quantization; Twisted K-theory; Loop groups, affine Lie algebras, Virasoro algebra. More information about the conference can be found at: https://swissmaprs.ch/events/moduli-spaces-quantization-and-poisson-geometry/